STTR Phase I: Cost-effective Fabrication and Patterning of Transparent Metal Oxide Nanostructures by Solution-based Laser Processing Technologies

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

This Small Business Technology Transfer Phase I project will investigate transparent metal oxide nanostructures, especially zinc oxide and titanium oxide, suitable for a wide range of applications that require transparent conductors.

If successful this project will create low cost transparent electrodes for applications such as LCD displays, touch screens, and solar cells.